Spin Excitations in Nuclei (Physics)

A nuclear physics program on spin excitations of the nucleus will be carried out by intermediate energy inelastic electron, proton, and pion scattering. New initiatives will be taken towards the study of short range correlations. Complementary studies will focus on unnatural parity states such as "stretched" excitations where the dominant coupling between the probe and the nucleus is the nuclear spin density. Not only can we test models of structure calculations but also test selected effective interactions within the DWIA model of inelastic pion and proton scattering. In addition (e,e') measurements are being extended to higher momentum transfer for selected excitations in order to study the importance of higher-order effects such as meson exchange currents, relativistic effects, and short range correlations. Electromagnetic studies of charge density transitions in light nuclei, through photon and electron induced multi-nucleon knockout reactions. Presently, a highly modular plastic scintillation hodoscope, together with a charged particle magnetic filter for background reduction and lead-scintillation shower counters for electron/photon-neutron discrimination, is under development as a large angular acceptance, high efficiency, medium energy resolution (time-of-flight_ neutron detector for use at LEGS, LAMPS, Bates, and eventually CEBAF.